Scholarships for Computer Science, Engineering and Mathematics Undergraduates

This project is annually awarding 29 scholarships to fulltime students majoring in computer science, engineering or mathematics. Recipients are academically-talented U. S. citizens or nationals, refugee aliens or permanent residents with financial need as established by application of the U. S. Dept. of Education guidelines. The focus is on students entering their junior year and those maintaining a 3.0/4.0 GPA are eligible to have the scholarship continued through the senior year. Faculty members are serving as mentors and encouraging students to undertake independent research. Travel funds are available to students whose research reports are accepted for presentation at professional meetings.